Scattering Spectroscopy of Structured Liquid Crystals and Complex Fluids

This renewal proposal is aimed at a structural study of suspended thin-films of thermotropic liquid crystals exhibiting a variety of phases intermediate between isotropic liquid and crystalline solid. The transition from two- to three-dimensional behavior will be studied in films ranging in thickness from two to tens-of-thousands of molecules. The study will include an investigation of interfacial structure in microemulsions, and the transition of some phases to the long range order of lyotropic liquid crystalline phases.